US-UK Cooperative Research: Arithmetic Permutations

This award will support collaborative research on the topic of algebraic permutations between Dr. Andrew Glass, Bowling Green State University and Dr. Peter Neumann, Mathematics Institute, Oxford University. The project will focus on the theory and structure of the free groups generated by real translations and power mappings. Both the US and British investigators have considerable expertise on the proposed topic of research. Dr. Neumann is one of the world's leading specialists in the area of infinite permutation groups. Dr. Glass has made a number of contributions in the area of ordered permutation groups and lattice-ordered groups. The results of this research may bring new and creative ideas to free group problems.